Research in Nuclear Physics and Related Topics

This proposal constitutes a continuation of studies of Feng, Gilmore and Vallieres in Research in Nuclear Physics and Related Topics; namely, (1) The fermion dynamical symmetry model, (2) Shell model calculations; (3) The baryon-baryon interaction; and (4) "quantum chaos" and non-linear dynamics.